Experimental Studies of Information Processing and Decision Making in Markets

Experiments are proposed to study management decision making in industrial markets characterized by uncertainty and asymmetric information: (1) Markets in which incumbent firms may try to limit entry through strategic price manipulations and (2) Markets in which a large chain-store may attempt to limit entry in its markets by establishing a reputation for being a tough competitor. A series of pilot experiments in both markets raise a number of questions that go well beyond the original theory that occasioned the experiments. New experiments are offered to answer these questions. The overall focus of the experiments is to better understand information processing and decision making by managers in industries with uncertainty and asymmetric information regarding rival firms' underlying cost structure.